New Dimensions in Post Occupancy Evaluation Using the Web

Post Occupancy Evaluations have been used to provide technical feedback to designers, developers, owners, operations, tenants and researchers following completion of newly constructed buildings and provide a basis for identifying research needs. They are an invaluable source of information for improving the design and performance of buildings. Surveys allow designers, developers, owners, operators and tenants to objectively gauge which building services and design features are working and which aren't. This project will evaluate whether a new, web-based survey instrument can provide these groups with a more robust performance analysis at a lower cost than existing methods.